The Synthesis and Reactivity of Heterobimetallic Compounds with Functionalized Cyclopentadienyl Ligands

The proposed research will play an important role in the development of a fundamental understanding of transition metal catalysts. In these studies, the results would be related to understanding how to produce functionalized organic substrates for use as chemicals. There are three objectives for this project. The first will prepare a series of transition metal hydrido-phosphine compounds which possess a cyclopentadiene-"dangling" phosphine ligand. This ligand will enable the metal to interact with a second metal center and form dimers by using the "dangling" phosphine as a two electron donor. Metals included in the study are Mo and W. Once the above compounds are prepared, the compounds will be reacted with a series of likely partner complexes. The dimers formed should be able to react similarly to related monomeric compounds. Properties of the likely partners are the ability to: insert into C-H bonds, coordinate CO and/or carbon dioxide and form molecular hydrogen compounds. The heterobimetallic dimers formed will be investigated for the change in the reactivity in relation to the number of hydride ligands. The number of hydride ligands can be controlled in two ways. The first involves the choice of starting compounds. The second will involve the reactions of the bimetallic dimers with either an acid or a base.